Semiconductor Measurements Laboratory

The detailed examination of the electrical characteristics exhibited by semiconductor (or solid-state) devices, and the extraction of basic "inside-the-device" information from those characteristics, are referred to as semiconductor measurements. Equipment in the undergraduate laboratory where semiconductor measurements are performed is enhanced and the associated experiments revised. Specifically, modern test equipment is to be acquired to perform current-voltage, capacitance-voltage, transient response, low- temperature, and a limited number of advanced characterization measurements. The instrumentation is to be grouped so as to form permanent stations of a functional nature. In this way the laboratory will simultaneously provide ready equipment access for interrogating devices (fabricated by students in a separate teaching laboratory) and for performing undergraduate student projects.